Type Structures in Programming Languages

This award enables the Principal Investigator to work with several researchers in the Palo Alto area, including John Mitchell at Stanford, Luca Cardelli and others at the Digital Equipment Research Center, Walter Hill at Hewlett Packard Laboratories and William Cook at Apple Computer. The intent is to initiate and pursue new research activities revolving around the design and semantics of object- oriented languages. The activity is expected to have a significant impact on the author's research at Williams College and on his role in the honors program there.